Integration of Orbital Cyclicity in Early Cretaceous DeepseaSediments of Northern Italy with Magnetostratigraphic and Biostratigraphic Timescales

Integration of Orbital Cyclicity in Early Cretaceous Deepsea Sediments of Northern Italy with Magnetostratigraphic and Biostratigraphic Timescales: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the propsective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project is in the area of paleoclimatic studies. Previous research has shown that a large fraction of climate variance in the last 800 kyr is explained by cyclic variations in insolation caused by regular perturbations in the earth's orbit ("Milankovitch Cycles"). The principal investigator intends to conduct a combined sedimentary time series and magnetostratigraphic study of a few selected magnetozones. If the orbital cycles are successfully resolved, new quantitative approaches to paleoclimatology will be possible. The project is under the direction of Dr. Timothy B. Herbert, Department of Geological and Geophysical Sciences, Princeton University, Princeton, NJ 08544, U.S.A., and Professor Hans R. Thierstein, Geological Institute, 5, Sonneggstrasse, Federal Institute of Technology (ETH), Zurich, Switzerland. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.